Conservation Biology Workshop

This project is a three year program that includes a summer workshop offering secondary science and mathematics teachers an integrated program of biology, mathematics and curriculum change. The central theme of the workshops is Conservation Biology. Approximate equal numbers of mathematics and science teachers will be selected to participate from a nationwide pool, though preference will be given to teachers from the Northwest region of the United States. Preference will also be given to teams of mathematics and science teachers from the same school or school district. During the course of the program, two overlapping workshops (26 teachers in each, beginning in consecutive summers) will be conducted. Each workshop will take place over two summers and include a four week residential summer workshop, an interim academic year, and a one week residential session the following summer. The first summer session combines field work, laboratories, seminars, and lectures in biology, mathematics and curriculum development. During the intervening year, participants will test program changes in their home institutions while interacting with fellow participants and faculty through a computer network. The final one week session, during the second summer, provides opportunities for participants to share successes and difficulties, develop future plans, and reinforce the participants' commitment to curriculum development. An amount equal to 13% of NSF costs will be provided as cost sharing